CAREER: Detection and quantification of metal-based engineered nanoparticles in surface waters

Proposal: 1553909
PI: Baalousha, Mohammed

Engineered nanoparticles are currently considered as an emerging contaminant because their increased production and use in consumer products leads to release into the environment. Risk assessment of nanotechnology to humans or the environment, resulting from increased accumulations of engineered nanoparticles in aquatic systems, is currently impeded by the difficulty in differentiating engineered nanoparticles from naturally occurring nanoparticles and quantifying engineered nanoparticle exposure concentrations and properties. This CAREER award aims to develop methods to discern engineered and natural nanoparticles and to measure the concentration and properties of engineered nanoparticles in the natural environment.

This CAREER award will develop a multi-method analytical platform capable of discerning engineered nanoparticles from natural nanoparticles based on differences in their physicochemical properties such as size, morphology, chemical composition, elemental/isotopic ratios, and/or combinations of these properties. The hypothesis is that engineered nanoparticles possess significantly different physicochemical properties, relative to natural nanoparticles, which will enable detection and quantification engineered nanoparticles in complex matrices. The multi-method approach includes field flow fractionation coupled with inductively coupled plasma-mass spectroscopy, single particle-ICP-MS and transmission electron microscopy coupled with X-ray energy dispersive spectroscopy techniques and methodologies. In particular, the research will evaluate the capability of these methods to identify subtle differences in physicochemical properties of engineered versus natural nanoparticles to: 1) enable detection and quantification of engineered nanoparticles, 2) determine applicability and limitations of these methods for engineered nanoparticle analysis in surface waters, 3) perform analysis of engineered nanoparticles in surface waters receiving effluents from waste treatment plants, and 4) apply the multi-method approach for monitoring of engineered nanoparticles in surface waters in collaboration with the USGS.

The outcomes of the proposed research will impact other disciplines such as aquatic toxicology and environmental nanoscience and engineering. Quantifying concentrations and properties of engineered nanoparticles in surface waters will affect engineered nanoparticle hazard and risk characterization by focusing on the form of engineered nanoparticles after their transformations in the environment. Also, measuring the concentrations and properties of engineered nanoparticles in surface waters will enable validation of engineered nanoparticles fate models. The outcome of the proposed research will also inform federal agencies (e.g. EPA, NIST, and USGS) and industry on nanoparticle regulation and best safety practices.

To integrate research, education and service, the PI will: 1) develop undergraduate and graduate lectures and courses in environmental nanoscience, 2) edit books that can be used as text book material, 3) enhance undergraduate, graduate, and high school laboratory and field experiences, 4) develop a professional training program for high school teachers, 5) enhance high school students awareness of nanotechnology and the opportunities and challenges it may offer, 6) train students on reviewing proposals, 7) involve students in grants development and writing, and 7) organize the FFF2018 symposium, and a meeting and discussion of high school student with international researchers.